SGER: Vasotiinergic Mechanisms Associated with the Control of Social Behavior

There are two closely related peptide hormones called arginine vasotocin
(AVT) and arginine vasopressin (AVP) that have been implicated in several
vertebrates as modulators of social behavior, including courtship, pair-bonding,
parenting, and aggression. The mechanisms by which these molecules act in
the brain to produce these behavioral effects remain unclear, but their
widespread distribution suggests they are evolutionarily conserved. It has been
suggested that AVT/AVP may affect the processing of species-typical social
releasing stimuli such as courtship calls, visual displays, or chemical signals. It is
important to take a comparative approach to this question, to determine whether
or not AVT/AVP can selectively influence behavioral and brain responses to the
specific releasing stimuli that have evolved in different groups of animals for
social communication. This project is a Small Grant for Exploratory Research to
test this hypothesis directly using goldfish, because the exact chemical stimuli
important for courtship and aggressive communication signals in this species are
uniquely identified and can be delivered quantitatively. The project is exploratory
because it is not yet clear whether AVT will influence social behavior in goldfish,
although AVT effects on social behavior have been shown in other teleost fish,
and some AVT/AVP effects are known for diverse other vertebrates.
Experiments manipulating AVT levels in the brain will measure effects on
courtship and aggressive behaviors in male goldfish during responses to
particular chemosensory social stimuli that release those behaviors.
This is a high-impact/high-risk project because the outcome is not clear, but
the potential impact of success is wide-ranging. If successful, the results will
lead to further studies on social regulatory functions of hormones, will have an
impact beyond behavioral neuroendocrinology to brain neurochemistry, animal
behavior, and evolutionary neuroscience, and could have an impact on
applications in aquaculture and fisheries industries.